A Planning Project for Enhancing the Sciences and Mathematics at New Mexico Highlands University

The Minority Research Centers of Excellence (MRCE) program was established in FY 1987 to provide substantial resources to upgrade the research capabilities of the strongest and most productive predominantly minority institutions. This planning grant project lays the foundation for a plan that will increase the institution's quality of research and research-related training. Specifically, support for this project will permit the establishment of an MRCE advisory committee of scientists and engineers, local leaders, and industrial representatives who will assist the institution in evaluating its current and future potential for performing meritorious research during the next five years. New Mexico Highlands University is under new administrative leadership that will address research, educational enrichment and faculty development. The institution will study barriers to the entry of minorities into science and engineering in public schools, junior colleges, and vocational schools. Under the new NMHU administration, this institution's assessment of its research capabilities is timely and warranted. The Foundation has supported this project because of the institution's opportunity to provide quality research to minority faculty and students.